SHF: Small: PrivAid: Differentially-Private Analytics for Android Apps

Mobile apps often use analytics infrastructures to gather data on app
performance and user behaviors. There are significant privacy concerns
about the collection and use of such data. Legislative efforts and
societal demands are calling for increased transparency and
well-defined compromises between the utility of data gathering and the
corresponding loss of privacy. This project will improve the privacy
of mobile app analytics by employing differential privacy, which
provides a rigorous theory and a powerful algorithmic framework for
privacy-preserving analysis. Integration of research
and education will develop the expertise of developers of mobile apps
and data analyses. Recruitment of underrepresented students will
contribute to increased diversity in computing. The project will
advance the important area of user privacy, in an environment with
rapidly-increasing societal and legislative demands for privacy.

The investigators will develop rigorous and quantifiable privacy
mechanisms in mobile-app analytics by leveraging the theory of local
differential privacy (LDP). The first contribution of the project will
be the design and implementation of PrivAid, a conceptual approach and
related software tools for deploying LDP analyses in widely-used
infrastructures for mobile-app analytics. Based on this foundation,
several algorithms targeting important software analyses will be
developed using novel techniques for randomization and sampling: (1)
edge/path profiling in control-flow graphs; (2) analyses of heavy
hitters for event profiling and graph profiling; (3) profiling under
continuous observation. The public release of PrivAid, software
analyses, and experimental subjects will enable the development and
evaluation of future LDP software analyses.